CEDAR: Seasonal and Interannual Variations in Thermotidal Forcing by Water Vapor Insolation Absorption

This research will update diurnally varying insolation rates using water vapor data from recent global climatologies that overlap the UARS experiment. This enables direct comparison between observed and modeled tides. The main objective is to clarify the effect of tropospheric heating on the seasonal and inter-annual variability of the propagating diurnal tide in the mesosphere and lower thermosphere. This study will enable tide modelers to sort out tropospheric forcing from other mechanisms of tidal variability, such as gravity-wave drag and mean wind influences. The PI's findings will contribute substantially to understanding the temporal variation of tides and global mean circulations in the mesosphere and lower thermosphere.